A Project in Method Development for the Instrumental Analysis Chemistry Laboratory

The laboratory course in instrumental analysis in the contemporary chemistry curriculum suffers from a tension between the teaching of the functional details of instruments versus the overall process of chemical analysis. Analytical chemistry as practiced in industry and elsewhere requires an understanding of the overall process. This project addresses that need by the incorporation of an analytical method development project into the laboratory. Students choose one inorganic (mineral) and organic (i.e. vitamin) component of a processed food product such as infant milk formula or fortified cereal to analyze. They research analytical methods in the chemical literature, exercise critical evaluation in choosing methods, and develop independent thinking as the analyses are carried out. The High Performance Liquid Chromatograph acquired through this project is crucial to the success of many of the organic analyses that students encounter in the exercises. The institution contributed to the project in an amount equal to the NSF funds.